Tyrosine Hydroxylase in Primary Somatosensory Neurons

Primary sensory neurons located along the length of the spinal cord in structures known as spinal ganglia convey information about the body (somatosensory information; e.g. pain, temperature) to the central nervous system. Defining the anatomical, biochemical, and molecular characteristics of these sensory nerve cells is prerequisite to determining their function. Dr. Seroogy has recently discovered that substantial subpopulations of spinal ganglion cells contain the biosynthetic machinery for an enzyme called tyrosine hydroxylase, an enzyme crucial for the synthesis of a class of chemical messengers called catecholamines. This finding raises the possibility that catecholamines play a role in the transfer and coding of sensory information from the body. The primary goals of the proposed research are to thoroughly characterize the organization of tyrosine hydroxylase (and catecholamines) within spinal ganglia and to determine the specific parts of the body that may be associated with catecholamine signalling. Dr. Seroogy will accomplish this by using molecular biological and neuroanatomical techniques. The results of these studies will add significantly to our understanding of the functional organization of catecholamines in spinal ganglia and will serve as the basis for future correlations with physiological studies in order to understand the involvement of catecholamines in transmitting sensory information.